Reactions of Excited Complexes and Radical Ions

This grant from the Organic Dynamics Program supports the continuing work of Dr. Frederick D. Lewis at Northwestern University, who is studying organic photochemistry. The investigation will utilize light to bring about chemical changes, and it is expected to lead to the development of new or improved chemical reactions and to provide an enhanced understanding of how chemical reactions occur. The experiments to be carried out by Dr. Lewis are comprised of studies involving two broad cagetories of reactions: (1) those in which photoinduced electron transfer provides the driving force for subsequent chemical reactions, and (2) those in which the photoreactivity of organic molecules is enhanced by means of ground-state complexation with strong Lewis acids. The ground states and the reactive intermediates (exciplexes and radical ions) in these reactions will be characterized by transient spectroscopy and by their chemical behavior.